Postdoctoral Research Fellowship in Biological Informatics for FY-1999

This action funds an NSF Research Postdoctoral Research Fellowship in Biological Informatics for 1999.

The research and training plan is in the area of biophysics and is entitled "Automatic analysis of protein NMR spectra for high-throughput NMR structure determination: a new technique for the Human Proteome Project." High-throughput protein structure determination (HTPSD) will be a key technique in the
Human Proteome Project. For NMR HTPSD, automation of spectral resonance assignment is essential.
AutoAssign is a constraint-based expert system that automatically determines backbone resonance
assignments using nine specific NMR experiments. This project supports further development of AutoAssign to robustly determine "complete" resonance assignments using many kinds of NMR data.